Research Initiation: Manipulation and Configuration Synthesis of Robotic Arms with and without Redundant Freedoms

In this research project, a reliable and efficient motion program (manipulation theory) will be developed for general robots with and without redundant freedoms. Good kinematic structure and good arm movement programs are both essential for a versatile manipulator. Classical search techniques to optimize the kinematic configuration of the arm are extremely exhaustive and therefore not feasible. Using the aforementioned general purpose manipulation theory, efficient search techniques will be developed to improve the configuration of the robotic arms.